Polymer Surface Dynamics and Boundary Lubrication

0004525
Archer
There is a long-standing need for engineering materials that are in one way or another self lubricating.
These materials are promising for a variety of applications where conventional lubricants either
cannot be used (e.g., joint replacement surgery in humans), or where their use is too costly (e.g.
deployed space vehicles, such as satellites, space-based observatories, and permanently deployed
space exploration equipment). Self-lubricated components also hold promise for preventing premature
failure of micro-electromechanical systems (MEMS). To design an effective self-lubricated
material from the molecular, nano-scale, it is necessary that lubricant molecules possess high surface mobility even when chemically grafted to a rigid substrate. The objective of the proposed research is two-fold: First, to fundamentally understand dynamics of uncharged polymeric and oligomeric species tethered to solid substrates; and Second, to develop high-mobility oligomer and polymer lubricating coatings using
tethered molecules, as a design of lubricating surfaces from the nano-scale up. The suitability of these coatings for self-lubricated MEMS fabrication will be evaluated in collaboration with researchers at the Cornell Nanofabrication facility.